Digital Image Processing Laboratory

This project supports a digital image processing course in a state where expertise in this technology is in critical need. The laboratory supporting the project includes a VAX station II/GPX running the Ultrix-32 operating system. The Vax station controls diskless monochromatic workstations connected via ethernet that serve as student workstations. Image acquisition is accomplished via a Panasonic WV-D50 solid state black and white camera, a frame grabber and a frame processor. Using the laboratory, undergraduate students gain hands-on experiences using hardware/software image processing tools. This award is being matched by an equal sum from the grantee.